Paleomagnetic Study of Seamounts from the Hawaiian-Emperor, Gilbert, and Tokelau Chains: Data to Constrain Pacific Tectonic and Hot Spot Models

The PI will join a funded cruise on the Tokelau-Gilbert seamount chain to collect magnetic data and calculate paleomagnetic poles with anomaly inversion technique. He will do the inversion on 12 Hawaii-Emperor seamounts and will use the pole positions to calculate a Late Cretacceous-Early Tertiary apparent polar wander path for th Pacific plate. He will also attempt to understand the nature of the Hawaii-Emperor bend, whether it is due to hot spot motion or due to change in plate motion. This work will enhance the value of the Tokelau-Gilbert survey by providing additional clues about the timing of volcanism in these chains and about Pacific tectonics, long-term geomagnetic filed geometry and true polar wander. Two additional days of shiptime will be added to the original cruise for adequate magnetic coverage of the seamounts.